NIRT: Bioinspired Nanoarchitecture

Abstract

This proposal was received in response to Nanoscale Science and Engineering initiative, NSF 03-043, category NIRT. The project will explore biological nanoarchitecture and apply this knowledge to create ordered arrays of quantum dots and semiconductor nanowires. The focus of the research is on S-layers, self-assembling protein arrays found in bacteria. Learning from self-assembling biological nanostructures such as S-layers will provide a framework for novel approaches to fabricating nanometer features over a large-scale area, which remains a major challenge in nanotechnology. Moreover, the successful fabrication of nanostructuresbio-templated using S-layers will provide a unique opportunity to study collective quantum effects.

The future of nanoscale devices will depend upon the discovery of an increasing array of novel materials which have robust properties and can be vast number of materials and along with a systems engineering approach these materials can be vastly improved. Bioinspired nanoarchitecture will find utility in existing devices and also spawn a new generation of devices with functionalities that have yet to be fully realized with existing materials.